Best Student Paper Program at the 2001 International Topical Meeting Microwave Photonics in Long Beach, CA on Oct 7-10,2001

This project requests travel support for 10 student participants from U.S.
universities in the Student Paper Competition at the 2001 International Topical Meeting
on Microwave Photonics (MWP).
The International Topical Meeting on Microwave Photonics (MWP) is the major
international meeting on microwave photonic devices, systems and applications. The
MWP'01 is co-sponsored by the Microwave Theory and Techniques Society (MTT-S) and the Lasers and Electro-Optics Society of the Institute of Electrical and Electronics
Engineers (IEEE). It will be held in Long Beach, CA on October 7-10, 2001.
Each year, the IEEE Microwave Theory and Techniques Society and IEEE Lasers
and Electro-Optics Society promote student education in microwave and photonics
engineering through a number of mechanisms. The Best Student Paper Program at the
MWP is one of the student outreach programs to promote the interactions among
students, faculty and industrial participants, and helps to develop the students' technical
acumen as well as their communication skills. It also introduces them to the international
technical community and helps to build a community of students who will lead the next
generation of microwave photonics engineers.
The MWP provides financial support of various forms to student presenters but
does not reimburse travel expenses. Travel support from NSF will ensure that the
program is open to the widest range of interested applicants from U.S. universities.